Doctoral Dissertation Research: Science and Engineering for Nation Building and Economic Integration

Under the supervision of historian, Graham Burnett, the Ph.D. student Anthony R Acciavatti will produce a history of multi-disciplinary, trans-national scientific cooperation. The student will document innovative ways scientists, engineers, and economists worked with bureaucrats to bring about liberal economic integration.

In addition to a dissertation, this project will produce a traveling multi-media exhibition.